Mathematical Sciences: Mathematical Modeling in Biology

This project will support several activities which will enhance the scope of collaborative research in biomathematical modeling at the State University of New York at Stony Brook. These activities will include a one day conference on mathematical biology in May 1990, a seminar series in biomathematics during the 1989-90 academic year, and a week-long visit by a senior researcher in biomasthematical modeling who will lecture and consult.